Machine Independent Parallel Execution of Numeric and Symbolic Computations

This research deals with scheduling algorithms for parallel execution of tasks in parallel computations. The project develops innovative scheduling schemes for parallel loops in numeric computations and dynamically spawned work in AND and OR parallel symbolic computations. The work focuses on the design and implementation of scheduling algorithms for shared and distributed memory machines in the framework of the Chare-Kernel parallel programming system. The schemes is evaluated with a comprehensive set of benchmark programs for both numeric and AND/OR computations